Theoretical Studies in Interstellar Astrophysics

McKee, Christopher University of California at Berkeley FY 96: $91,136 FY 97: $91,136 FY 98: $91,136 Dr. McKee will continue to pursue an ambitious theoretical research program in four related areas: (1) The global structure of the interstellar medium; (2) Molecular clouds and star formation; (3) Numerical studies of shocked clouds; and (4) Hot gas in the interstellar medium. =====================